Studies in Fractional Factorial Design

The investigator studies several problems in the theory of fractional
factorial design. Some recent results in finite projective geometry
provide powerful tools for characterizing the structures of regular
fractional factorial designs of resolution IV in certain important cases.
One major research activity is to expand these tools and apply them to
develop a comprehensive theory for the determination and construction of
optimal regular fractional factorial designs of resolution IV under the
criterion of minimum aberration. The results are further extended to
nonregular designs and the situation where the experimental units are
divided into more homogeneous blocks to improve precision. The research on
nonregular designs provides new methods for constructing orthogonal arrays
of strength three. Hidden projection properties of multi-level designs are
also investigated. Under the assumption of effect sparsity, a design with
good projections onto small subsets of factors can provide useful
information after the small number of active factors have been identified.

Experimental design is used extensively in a wide range of scientific and
industrial investigations. In industrial experiments, often a large number
of factors have to be studied, but the experiments are expensive to
conduct. In this case, only a small fraction of all the possible
combinations can be observed, and how to choose a good fraction is an
important issue. In recent years, such fractional factorial designs have
received considerable attention, mainly due to the success in applying
them to conduct experiments for improving quality and productivity in
industrial manufacturing. This research is to study the construction of
efficient designs to extract more information. Experimenters will be
benefited by having a rich source of new and good designs, and will be
able to run their experiments more efficiently. Better industrial
experiments can improve the quality of products and reduce production
cost.